RUI: Graphical Theorem Proving

Mathematicians frequently illustrate proofs with an accompanying diagram. The aim of this endeavor is to investigate the hypothesis that these diagrams serve as a proof plan - a high level description of how the proof is to be carried out. This will be done by building a computer program which can interpret diagrams as plans to be followed by an automated reasoning program. Preliminary results suggest that the automated reasoning task is much simplified by the presence of guidance from the diagram. The work will proceed by identifying new theorems to be proved using the system, and diagrams that may be associated with them, and by implementing rules for interpreting these diagrams as proof plans which will then be passed to our automated reasoning system. Weaknesses in the existing automated reasoning system have been identified, and these will also be addressed.